Collaborative Research: STEM Persistence and Retention for Talented, Low-Income Students via Scholarships, Curricula, Centralization, Cohorts, and Collaboration

This project will contribute to the national need for well-educated scientists, mathematicians, engineers, and technicians by supporting the retention and graduation of high-achieving, low-income students with demonstrated financial need at University of North Carolina at Charlotte, Rowan-Cabarrus Community College, Cleveland Community College, Gaston College, and South Piedmont Community College. At least 120 scholars pursuing associate in science degrees and/or bachelor’s degrees in biology, data science, or computer science will receive scholarships of up to $15,000 per year depending on each scholar’s unmet need. Scholars will receive faculty mentoring and the project will build strong scholar cohorts through opportunities for shared courses, undergraduate research, and service-learning. Additional activities for scholars include tutoring, success coaching, and focused career services.

The overall goal of this Track 3 S-STEM project is to increase STEM degree completion of academically talented, low-income undergraduates with demonstrated financial need. There is a significant national need to grow the STEM workforce and nurture key talent that will ensure economic competitiveness and provide domestic leadership across critical sectors. This project directly speaks to this need by supporting STEM student success, which will strengthen the workforce in computer science, data science, the biological sciences, and other key areas of need. The project will be assessed by an experienced evaluator and project research focuses on developing scholars’ transfer and science capital. Research findings and the data generated through project evaluation will contribute to the knowledge base regarding effective strategies to support talented, low-income students in STEM. This project is funded by NSF’s Scholarships in Science, Technology, Engineering, and Mathematics program, which seeks to increase the number of academically talented, low-income students with demonstrated financial need who earn degrees in STEM fields. It also aims to improve the education of future STEM workers, and to generate knowledge about academic success, retention, transfer, graduation, and academic/career pathways of low-income students.